Symbolic and Graphing Technology and Cooperative Learning inIntroductory College Mathematics at the College of Wooster

A computer laboratory with Macintosh IIsi computers running the computer algebra system Mathematica is being used to complement the ongoing collaborative learning program being used in Calculus. The project is expanding CAS and graphing software use and the cooperative learning experience to most underclass- level mathematics courses offered. These changes are also being